Workshop on Non-Stationary Signal Analysis and Applications in Biomedical Signal Processing

9319840 Szeto This award will help fund a workshop that will be held in conjunction with the 15th Annual International Conference of the IEEE Engineering in Medicine and Biology Society meeting. The workshop is entitled "Non-Stationary Signal Analysis and Applications in Biomedical Signal Processing" and it will be held in San Diego, California on October 27- 31, 1993. The award will provide support for the three workshop instructors, allow the registration fee for the participants to be reduced from the normal amount, and provide funding for some administration. The workshop is important since it will focus on advanced signal processing techniques that could be used in the study of biomedical systems. ***